Advancing Precision of Electromagnetic Probes for Studies of Hadronic Structure

This project’s planned activities fit into a broader picture of active current research in hadronic physics both nationally and internationally. The Electron Ion Collider project at Brookhaven National Lab has recently passed DOE’s Critical Decision 3A in a move toward procurement of key components, while the Jefferson Lab actively pursues analyses of deep inelastic and deep-exclusive processes with further plans for adding positron beams. Results of the project will be disseminated through a user-friendly interface mirrored at Jefferson Lab (Radiative Corrections Helpdesk) to assist the nuclear physics community in developing proper physics analysis tools. Education of a new generation of scientists in this field is of top priority, and the PI will address it by advising one PhD candidate, involving undergraduate students in research projects, and providing talks for broader audiences.

Key questions being addressed in modern nuclear science include (i) the role of quarks and gluons in forming nucleons and nuclei and (ii) fundamental symmetries governing interactions between leptons and nucleons and nuclei. US made significant investments into fundamental science and provided facilities for nuclear research that are aimed to finding answers to above questions. This project will advance the current understanding of electromagnetic interactions of hadrons beyond the leading order in QED by developing appropriate theoretical and modeling approaches. Novel effects will be considered for elastic electron-nucleon scattering and deep-exclusive reactions. The results of the investigation apply to the physics programs at Jefferson Lab and the Electron-Ion Collider at Brookhaven National Lab that aim to map the 3D-structure of hadrons from precision electron scattering.